Continuation of Equatorial Mesospheric Studies Using a Meteor Echo Detection and Collection System

To understand the transport of energy throughout the middle atmosphere requires observations around the globe. Many observational programs are currently in place providing such information at middle and high latitudes. This project is to continue studies of the equatorial mesosphere using meteor echo returns on VHF profilers on Christmas Island. These data will be analyzed for mean wind and tidal climatologies as well as the structure and evolution of large-scale wave motions and how they relate to the mesospheric semiannual oscillation and tropospheric wave patterns. Additional meteor echo detection and collection systems will be built and installed on VHF radars located in Pohnpei, Indonesia and Peru. These additional stations will allow study of mesospheric dynamics in four different tropospheric climatic regions. ***